NMR Quadrupolar Spin Probes of Solid State Structure and Dynamics

In this award, funded by the Chemical Structure, Dynamics and Mechanisms
Program of the Chemistry Division, Profs. Robert L. Vold and Gina Hoatson from the
College of William and Mary and their graduate and undergraduate student colleagues
will develop realistic models for simulating slow molecular motion, apply them to new
types of nuclear magnetic resonance experiments, and make the modeling and data
fitting procedures easily accessible and freely available to the general scientific
community. On line documentation, to be developed as part of this project, will include
tutorials on experimental procedures, illustrated by animated simulations of typical
experiments. This will provide a generally useful teaching tool for introducing students to
practical aspects of spectroscopy, even in situations where expensive, high field
instrumentation is not readily available.

The work of Prof. Vold, Prof. Hoatson and their research colleagues and
research students will enable scientists to study a broader range of materials, and to
analyze some of the very slow motions that are important in determining such useful
properties as increased sensitivity of ultrasonic detectors. In addition to the broader
scientific impact of the proposed work, the students being trained in this project will be
exposed to unique interdisciplinary research.